Collaborative Research: A Multi-University I/UCRC Center on Intelligent Storage

Full Center Proposal for an I/UCRC for Intelligent Storage
0934396 University of Minnsota; David Lilja
0934401 University of California-Santa Cruz; Ethan Miller

The purpose of this proposal is to start a new I/UCRC "Intelligent Storage" to conduct research on new storage architectures and storage system designs, new data models and new ways to access and deliver data. The lead of the proposed Center will be the University of Minnesota, with site location at the University of University of California-Santa Cruz.

The goals of the proposed Center are to develop innovative storage systems and new storage architectures, solve the long-term data preservation issues, develop efficient benchmarking, tracing, performance management and tuning tools for I/O and input systems, propose solutions that ensure data/information privacy and security, and to explore ways to save energy in data center. The proposed Center will build on the respective University's research talent and technology transfer skills to attract industrial partners who will subsequently play a significant role in planning, selecting, and implementing the output of the research.

The broader impact of the potential research outcomes includes fostering the advancement of science and technology, making the society more efficient and secure, providing better health-care delivery, and better ways of preserving information. The industry participation will enhance the students' educational experience by providing a pipeline for talented engineers and scientists to industry. The proposed Center is committed to enhancing the education process by bringing input from industry, developing new courses at both undergraduate and graduate levels, and emphasizing the diversity of the student population. The Center also has plans to recruit more female and under-represented minority students and faculty into its research group. Research results will be disseminated to general public via journal publications and conference presentations.